Assessment Study of the Calculus Reform Movement and the NSFCalculus Program

The Mathematical Association of America (MAA) will carry out an evaluation study of the calculus reform movement in the United States. This evaluation study will include current efforts in colleges and universities to generate a reform movement and, in particular, will consider the NSF calculus initiative as a model for future curriculum initiatives. Information collected will include factual data on a wide variety of projects including all NSF funded projects. An in-depth study of a carefully selected sample of projects will include site visits and on-site data gathering. Key issues to be addressed will include outcomes of individual projects, long term continuation of projects, dissemination and integration of results and future directions. Simultaneously, the effectiveness of NSF's program, as a factor in the reform movement, will be studied as a model for promoting curricular reform. Regular reports will be made to the mathematics community and to other science disciplines. Since the NSF initiative in calculus is a large factor in the reform movement, and since this study is of interest to NSF staff, NSF will be included as a recipient of these regular reports. Cost sharing on this award is $17,000 or 9%.//